Experimental Partnership - Hardware-Software Co-Design of Real-Time Operating Systems and Embedded Microprocessors

EIA-0000439
Bruce Jacob
University of Maryland

Title: Hardware-Software Co-Design of Real-Time Operating Systems and Embedded Microprocessors

The objective of this experimental research is to improve the performance, predictability, and reliability of embedded applications by simulating a processor, building a hardware filed-programmable gate array prototype and implementing a real-time operating system and virtual machine environment to support associated embedded applications. This work must be approached experimentally rather than theoretically due to the difficulty in designing and implementing analytical models which are complex enough to inform the design of real world systems. The design of hardware and software elements concurrently should lead to greater integration and higher performance by several orders of magnitude than the design of either element separately.